Maternal Effect Locus Modulates Distal Bithorax-Complex Mutants

An underlying mechanism is being sought to explain the modulation of the homeotic tuh-3 gene by maternal effect alleles. Homeotic mutants cause the appearance of normal anatomical structures in the wrong location of the body. The homeotic tumorous-head (tuh-3) mutant in Drosophila melanogaster was selected for these studies. It is located at the distal end of a complex of genes (bithorax- complex, BX-C), which provides identity to some thoracic and all abdominal segments in the fly. Tuh-3 and other mutants at the end of the complex are modulated by the tuh-1 maternal effect locus at the base of the X-chromosome. Tuh-3 functions as a dominant mutant in the presence of the recessive tuh-1h maternal effect, causing genital expression in the head. Head defects totally disappear and tuh-3 acts as a simple recessive in the presence of the dominant tuh-1g maternal effect allele. In order to understand how this genetic system works, we have cloned tuh-1 and are determining how tuh-3 interacts with the mutants of the distal BX-C. We now propose to prove that tuh-1 has been cloned by P-element transformation, determine which cells in the oocyte produce the tuh-1 mRNA, follow its distribution pattern in the egg and embryo, demonstrate the distribution profile for the tuh-1 protein and use the inferred amino acid sequence to suggest a role for the protein. At present we suspect that the tuh-1h allele yields no functional gene product and therefore is incapable of suppressing mutant gene activity in more anterior locations, making tuh-3 function like a dominant mutant. The proposed role of the wild type tuh-1g function is to suppress BX-C activity in the anterior of the embryo, causing tuh-3 to act as a simple recessive loss of function mutant in the posterior of the embryo. The proposed experiments directly test this model. Continued genetic studies of the interactions between tuh-3 and the distal BX-C mutants should clarify the function of tuh-3 in the BX- C, while continued physical mapping of these mutants will provide insights into their BX-C functions and suggest where and how tuh-1 may modulate their function.***//